Quantitative Research Methods for STEM Education Scholars Program

Despite the interest in STEM education research, there are not enough scholars and early career researchers trained to use quantitative methods to address large-scale research questions. This training institute project will target early career scholars in STEM Education within either K-12 or postsecondary settings. Some of the topics to be addressed during the institute include: structural equation modeling, longitudinal data analysis, multilevel modeling, mixture models, latent class analysis, Bayesian methods, social network analysis, and machine learning. Additional topics will focus on the use of AI in research methods and dissemination. The goal of the training institute is to focus on and improve education research study design, methods of measurement, and data analytical approaches for over 50 early career scholars over three cohorts. Each scholar's work will make valuable and immediate contributions to the literature.

This research institute involves a year-long training of three cohorts of 17 Quantitative Research Methods (QRM) scholars via intensive institutes on fundamental issues in research design, analysis, and measurement. The institute involves both in-person and remote collaborative activities and meetings with assigned methods mentor and graduate student facilitator. Year-long interactions include live-stream workshops, regular meetings with methods mentors, and collaborative peer infrastructure to improve participant skills in design and execution of research in STEM education. Each QRM scholar will be expected to work on a proposed data analysis or full grant proposal during the year they are being mentored. This project is supported by NSF's EDU Core Research and DRK-12 programs with additional support from the Advancing Informal STEM Learning and Innovative Technology Experiences for Students and Teachers Program.